Support for Participation in the International Astronomical Union for U.S. Participants in the 1994 General Assembly of the IAU

9319886 Boyce The American Astronomical Society will provide travel assistance for astronomers from the United States to attend the General Assembly of the International Astronomical Union. The General Assembly will take place in the Netherlands in August 1994. ***